New Researchers Conference in Conjunction with the Institute of Mathematical Statistics to be held August 4-7, 1999 in Baltimore, Maryland

9817969
Priebe
This award provides funds to partially support the fourth New
Researchers Conference sponsored by the Institute of Mathematical
Statistics. The purpose of this conference is the development of
junior researchers in statistics and probability, with special
emphasis on mentoring women and underrepresented minorities. The
meeting is planned for August 4-7, 1999 at the Johns Hopkins
University Homewood Campus in Baltimore, just prior to the annual
joint statistical meetings to be held in Baltimore. Support is
offered to 50 junior researchers, within 5 years of degree, who
will present their work and interact with other colleagues.
Three senior researchers and a panel of representatives of funding
agencies including NSF, NSA and NIH.